Equipment to Support an Integrated Laboratory Approach to Teaching Animal Anatomy and Physiology to Undergraduates

The aim of this project is to equip student work stations that provide supervised hands-on participation in laboratory exercises to replace the demonstration practices previously followed. Four Grass polygraph systems, ten microscopes, and an Apple IIe-based instrumental control and data collection system are being installed in the undergraduate Animal Anatomy and Physiology laboratories to potentiate a basic and far-reaching curricular change. Six laboratory courses are affected. Majors in Animal Science now will graduate from this program much better prepared to meet the demands of graduate school or employment in this rapidly growing aspect of applied biology. The project serves students of mainly urban origin and of diverse backgrounds, ethnicities and socio-economic levels. Approximately 70% of the students served are women.